VOTCAM

This is a proposal for a small regional conference in each of the next three years. This conference, Virginia Operator Theory and Analysis Meeting (VOTCAM), has been held yearly since 1992 and attracts several people from well beyond Virginia, in spite of its name. Indeed, it often attracts international participants.